SGER: Miniaturized Microscope Array Digital Slide Scanner

0124922
Descour
The aim of this project is the demonstration of an array of miniaturized microscope objectives. The area of immediate application is telepathology, a subspecialty of telemedicine that permits an expert pathologist at one location to provide diagnostic services to remote locations using digital video microscopy and modern telecommunications links. The goal of this SGER project is to explore the essential technical challenges associated with construction of an 80-microscope array In this project a sub-array of four, NA = 0.4 microscopes will be fabricated that will demonstrate a substantial imaging capability, i.e., imaging a 1-mm wide swath along the length of the slide. Image data will be recorded with 1-micron spatial resolution. The long-term goal of the research is to construct an NA = 0.7, 80-microscope array capable of 0.5-micron resolution over a 20-mm wide field of view. This SGER project will establish the technology foundations on which the NA = 0.7 microscope-array design will be based.